Implantable Sensors for Measuring Tendon-Muscle Forces

This is fundamental engineering research to determine the interaction between tissue and an implanted force transducer. This experimental and analytical information is critical to understanding the transducer signal for use in diagnosis, treatment and rehabilitation of musculoskeletal injuries and impairments.